Support for U.S. Scientific Participation in PICES

9729444 Alexander This award provides partial funding for U.S. ocean scientists, particularly those in the academic research community, to participate in the activities of the North Pacific Marine Science Organization (PICES). This organization was established in 1992 to promote and coordinate marine scientific research in order to advance knowledge of living marine resources, land-ocean and atmosphere-ocean interactions, ecosystem components and processes, resource usage, ocean response to global weather and climate change, and human impacts in the North Pacific. Members presently include Canada, China, Japan, Korea, Russia, and the United States. Participation by U.S. scientists in Annual Meetings, scientific committee working groups and workshops, will also be funded through this award.